Mathematical Sciences: Numerical Solution of Elliptic Equations

This award involves the study of preconditioning strategies for the solution of the large linear systems that arise in the discretization of elliptic boundary value problems. In particular, the investigator will use preconditioning in cases when the elliptic operator is not self-adjoint, as in certain non-self-adjoint Helmholtz problems in exterior domains. In the course of solving boundary value problems for elliptic equations numerically it is necessary to solve very large systems of linear equations that arise when the continuous problem is replaced with a discrete one. The investigator will develop methods for solving such linear systems that are both efficient and robust, enabling researchers to save time and money.